Numerical and Laboratory Experimental Investigations of Magma Transport in Oceanic Lithosphere

9730673 Ito This is a numerical modeling and laboratory experimental effort to study 3-D magma transport through the oceanic mantle. The objectives are to determine how lithosperic properties and stresses control dike network formation and the distribution of volcanism at the surface, and to understand the efforts of magma soruce properties on dike propagation in the lothospere.